RUI: Parallel Object-Oriented Programming with Multiple Inheritance

The transition from sequential object-oriented programming to parallelism has been the focus of research over the past decade. Experimental languages that try to integrate objects and parallelism often compromise the inheritance capability for parallel objects. Even the languages that permit some parallelism and inheritance support only single-class inheritance. In this project support for multiple-class inheritance for parallel objects will be investigated. The technique employed is based on `separate` methods which generate processes and provide rendezvous type coordination. The project will apply this technique to Oberon language. The research will be performed under the Research for Undergraduate Institutions (RUI) program.